Research in Nuclear Physics

This three-year grant will support a faculty member, two graduate students, an undergraduate student, and some staff and technician support at the dedicated Wisconsin Van de Graaff facility to perform a variety of measurements investigating the nature of the nuclear force in light nuclear systems. Using polarized ion sources and cryogenic polarized targets radiative capture of protons with deuterons will investigate the role of tensor forces. The scattering of deuterons from 3He will investigate possible violation of time-reversal invariance in the strong interaction. Other experiments will explore the effects of three-body forces. Radioactive oxygen beams will be developed for use in important nuclear astrophysics cross- section measurements; these radioactive nuclei play an important role in the CNO cycle. A very important part of the Wisconsin program is the in-depth education of undergraduate and graduate students.